Digitization TCN: Collaborative: The Macrofungi Collection Consortium: Unlocking a Biodiversity Resource for Understanding Biotic Interactions, Nutrient Cycling and Human Affairs

The Macrofungi Collection Consortium: Unlocking a Biodiversity Resource for Understanding Biotic Interactions, Nutrient Cycling and Human Affairs

Mushrooms and related fungi (macrofungi) play a critical role in the lives of plants and animals, including humans, yet their diversity is underestimated. Understanding this diversity will be critical in analyzing impacts of habitat change, nutrient cycling in ecosystems, and distributions and diversity of host organisms. Scientists in the U.S. have been studying these fungi for the past 150 years, resulting in a legacy of approximately 1.4 million dried scientific specimens conserved in 35 institutions in 24 states. These institutions have now joined in an effort to digitize and share online all data associated with macrofungi specimens. The resulting resource will enable a national census of macrofungi, never before attempted, and will allow researchers to better understand the diversity of these organisms and the relationship between macrofungi and the organisms with which they form intimate relationships.

Organized into clubs across the country, citizen mycologists play an important role in documenting macrofungi diversity, and these enthusiastic individuals are the conduit between professional scientists and the general public for critical information about wild edible and poisonous fungi. Citizen mycologists will join the collections institutions in this project to help to create the on-line resource. The project will fund two workshops for high school teachers to promote classroom study of fungi. University students employed by the project will gain work experience in digitization and formal training about fungi. Students will share the knowledge they gain through oral and video presentations. This award is made as part of the National Resource for Digitization of Biological Collections through the Advancing Digitization of Biological Collections program and all data resulting from this award will be available through the national resource (iDigBio.org).